A Proposal to Provide Technical Assistance to Increase the Participation and Competitiveness of Minority-serving Institutions in the MSP Program

This project supports a two-day workshop to provide technical assistance to minority serving institutions (MSI) considering submission to the MSP Targeted competition. Each team attending the workshop consists of a scientist or mathematician, an education faculty member and a school district representative. To be eligible to attend, the team sends in a short description of what is planned. Follow-up evaluation focuses on the number of proposals submitted and the number of awards made.